REU Site - Internships in Nanosystems Science, Engineering and Technology (INSET)

This award provides funding to the University of California-Santa Barbara (UCSB) to establish the Internships in Nanosystems Science, Engineering and Technology (INSET) REU site program, to be hosted by the California NanoSystems Institute (CNSI). The project will be under the direction of Dr. Evelyn Hu. The INSET program will involve a minimum of eight undergraduate students from California community colleges in a program that includes the following three research components: eight-week summer internships at the UCSB; school-year internships for UCSB students who previously attended community colleges; and off-site research internships at UCLA and industry for students in the summer following an initial UCSB summer or school-year internship.